Recycling of Electronic Wastes Symposium

0903760
Hunt

This grant is in partial support of the "Recycling of Electronic Wastes Symposium" to be held as part if the 138th Annual Meeting & Exhibition of the Minerals Metals & Materials Society, February 15-19, 2009 in San Francisco, CA. The symposium will include presentations on life cycle and economic analysis for recycling electronic wastes, combustion or pyrolysis, hydrometallurgical recycling, and mechanical recycling of electronic wastes, and recycling of plastics and recovery of metals from electronic wastes. NSF funds will be used to support student participation, invited speakers, and related symposium items.